Sixth Pan American Congress of Applied Mechanics

*** CMS 9726925 Steele The Sixth Pan American Congress of Applied Mechanics (PACAM) is being held January 4-8, 1999 in Rio de Janeiro, Brazil. The meeting porovides outstanding venues for enhancing communication among the engineering scholarly communities of the Americas. Panel discussions will be held on the topics: (a) history of women in mechanics, (b) perspective of women in mechanics, and (c) advances in bioengineering. Selected papers from the meeting will be published in a special issue entitled "Mechanics Pan America" of the International Journal of Solids and Structures.***